SHF: Small: Ensuring Reliability and Portability of Scientific Software for Heterogeneous Architectures

Numerical results of scientific computations are stored in computers as
floating-point numbers, an approximation of real numbers that accounts for
the fact that a computer's storage is limited. This need for approximation
has the unfortunate side effect that floating-point numbers don't abide by
common laws of arithmetic known from high school, such as the associativity
of addition. As a consequence, apparently equivalent implementations of
floating-point operations on computer hardware may produce very different
results, such as when the order of operands of an addition is changed by a
compiler. Programs generically written for high-performance parallel computing
platforms are likely to be compiled using different floating-point
implementations and schedulings, as the executable resulting from the
compilation depends on the available hardware. Such parallel scientific
programs are therefore susceptible to reliability and portability issues
that can range from simple deviations in precision to drastic changes of
program control flow when moving from one architecture to another.
The results of this research will be tools and techniques to help scientists
find bugs more effectively in such programs. This research has important implications
for the reliability of important scientific programs such as those used in biomedical
imaging applications, climate modelling, and vehicle design.

This project develops rigorous methods for analyzing parallel scientific
code, specifically written using the now emerging OpenCL parallel
programming standard. The goal is to detect potential sources of
reliability and portability deficiencies in such code that are due to
dependencies of the floating-point behavior on the underlying hardware,
which may be unknown to the programmer. Traditional reliability methods
such as program testing and debugging are ineffective for parallel OpenCL
programs, because program behavior may vary across runs, making after-test
behavior uncertain. For these reasons, the investigators will use rigorous
analysis methods that are not solely based on program execution. Instead,
the program is formally modeled as a transition system; the model is
encoded symbolically, using logical formula representations that can often
compactly represent the set of executions of the program without executing
it. The program model is then analyzed for portability violations and
program errors using floating point-capable decision procedures and model
checkers. To achieve scalability, the investigators plan to exploit the
highly symmetric and parametric form of OpenCL programs, where identical
operations are performed by many computational threads in Single
Instruction Multiple Data (SIMD) style.